Dissertation Improvement Research on the Vegetational Environment of Evolving Homo Sapiens in Western Kenya

This proposal requests funds to support the doctoral dissertation research of Mr. Joseph Mworia Maitima under the direction of Dr. Daniel A. Livingstone, Department of Zoology, Duke University. Mr. Maitima is Head, Palynological Laboratory, National Museum of Kenya. He will do field research on the vegetational environment of evolving Homo sapiens in Western Kenya. East African hominid fossil and human cultural sites span the known period of human cultural evolution. They are close to lake and swamp deposits with a fossil record of the vegetation during many millions of years. By coring the sedimentary deposits and studying their microfossil assemblages, it is possible to record the changing environment to which human species and human culture were adapted. Previous research has emphasized the last 30,000 years, too short a time to include the evolution of Homo sapiens sapiens, or the early change from Early Stone Age to modern technologies. The present project will extend the record far enough to reveal the vegetational environment of the immediately post-Acheulian Sangoan culture, the oldest known from presently-forested parts of Africa. Pollen grains and grass leaf cuticles from sediment and swamp deposits will be used to reconstruct the vegetational history around Lake Simbi in western Kenya. Through this research the hypothesis that the landscape was forested at the time of its Sangoan occupation will be tested. The present project is unique in that while funds are requested for a dissertation improvement grant, Dr. Livingstone and Mr. Maitima have collaborated in the past; that collaboration has resulted in the publication of their research; and future, postdoctoral collaboration is planned, using the items of equipment and supplies provided through this project. This project is relevant to the objectives of the Science in Developing Countries Program which seeks to increase the level of cooperation between U.S. scientists and engineers and their counterparts in developing countries through the exchange of scientific information, ideas, skills, and techniques and through collaboration on problems of mutual benefit.